CAREER: Securing Active Information

Securing Active Information

Abstract

When multiple parties attempt to collaborate, they often end up having to
compromise the confidentiality of their private information. Cryptographic
primitives like secure multiparty computation and obfuscation are aimed at
mitigating this situation. We view many such problems as part of a unifying
paradigm that we call Active Information: various parties in a system can have
access to prescribed actions of the information in the system, but nothing
more.

The first focus area of the project is secure multiparty computation, which
lets mutually distrusting parties emulate a commonly trusted party, by means
of a protocol. We identify and investigate crucial properties required for
this to be useful in practice: "network-awareness" addresses issues that arise
in a realistically complex environment, and a new class of "context-awareness"
features are vital in integrating secure multiparty computation into a larger
application. We also derive insight into the fundamental nature of various
multiparty computation tasks by classifying them into complexity classes.

Another focus of this project is on "secure active objects" that offer far
more flexibility in their use, compared to protocols. We study well-known (but
little understood) concepts like obfuscation, as well as new tools we develop
like "remotely primed obfuscations," and "active encryptions," and also
features like anonymity and unlinkability that are important for applications.
Secure active objects also serve as a platform to integrate the study of
hardware-based security solutions into the theory of cryptography.

The tools developed span a wide spectrum, ranging from low-level algebraic
techniques used in constructions, to high-level frameworks for conceptualizing
security definitions.

Towards bringing the subtle concepts from theoretical cryptography to a
broader audience of current and future practitioners, two online resources are
being developed: (1) a wiki-based tutorial/reference website, and (2) a blog
aimed at students and a non-specialist audience.